Canonical metrics and stability

Abstract

Award: DMS-0514003
Principal Investigator: Jacob Sturm

The main themes of this proposal - critical exponents of
holomorphic functions, the Kaehler-Ricci flow, canonical metrics
and stability of algebraic varieties, are well established in
classical analysis and differential geometry, with fundamental
results dating back to the nineteenth century. The principal
investigator will continue his research with D.H. Phong in these
areas: The first project will use techniques developed in earlier
work to understand the critical exponent set (i.e., the set of
log canonical thresholds) in n-dimensions. Of particular interest
are the applications of this structure to problems in algebraic
geometry. The second project concerns the Kaehler-Ricci flow, and
addresses the convergence properties of this flow and the
question of when the positivity of the Ricci curvature is
preserved under the flow. The third project is motivated by the
basic question: When can a Kaehler metric on a compact complex
manifold be deformed into one of constant scalar curvature? It is
believed that the key to this problem lies in the relationship
between the finite geometry of the general linear group and the
infinite geometry of the space of Kaehler metrics. Techniques
from pluri-potential theory, developed in earlier work, will be
applied to elucidate this relationship.

The laws of nature are written in the language of mathematics,
and conversely, much of the research in modern mathematics is
spawned by fundamental discoveries in science. Prime examples of
this interplay are seen in the theory of general relativity and
in quantum field theory, which were derived with the help of the
tensor calculus of differential geometry. On the other hand, the
equations which govern our universe (which include the Einstein
equation and the Yang-Mills equation) have a beautiful structure
which, for some mysterious reason, has helped elucidate
fundamental questions in abstract mathematics. The problems
outlined in this proposal fall into this very productive and
beautiful interplay between the understanding of our physical
universe and the abstract realm of mathematics.